International Conference on Research & Development in Mathematics and Science Education; Kiel, Germany; March 6-8, 2003

WestEd is providing travel for U.S. participants in a German-American workshop devoted to research issues of interest to project teams associated with the NSF workshop is to be held in Kiel, Germany, March 6-8, 2003. The living expenses of American and German participants in Kiel are to be paid by a grant from the Deutsche Forshungsgemeinschaft (DFG), which is the German equivalent of the National Science Foundation.